Engineering Materials from Lignin

This study is to advance the understanding of engineering parameters of polymeric materials formulated on the basis of lignin and lignin derivatives. This proposal investigates the structive-property relationships of lignin-derived structural materials. Three specific engineering parameters will be investigated in this study; (1) an assessment of the effect of molecular weight and molecular weight distributions; (2) an exploration of several optional toughening mechanisms; and (3) an investigation of alternative network synthesis techniques involving crosslinking agents other than diisocyanates.